Meaningful Mathematics - An Activity Program, K-6

This project will develop innovative instructional materials for an activity centered mathematics curriculum for grades K-6. In this curriculum, the textbook is replaced by direct and active student experiences with manipulative materials, accompanied by verbally presented problems and situations. Learning is reinforced through the use of worksheets. Children work individually on some tasks and in small groups on others. The sequence of concept development in this curriculum differs significantly from the standard sequence. For example, the concept of fraction is introduced in kindergarten, as is geometry. Place value development begins in grade one. Logic is introduced in grade two, and the concept of function is introduced in grade four. In general, more time than usual is spent on concept development. Preliminary materials for grades K-4 have already been developed with support from the Minnesota Council on Quality Education. Associated workshops for teachers have been funded by both NSF and the Department of Education. The preliminary materials have been used successfully in a variety of locations. It appears that they are particularly successful when used with Native American children. This grant will support the revision of the materials for grades K-4, in preparation for wider dissemination, and it will support the development of similar materials for use in grades five and six.